SGER: Computational Modeling of Disaster Response

An interdisciplinary team of anthropologists, engineers, computer scientists, public health
scholars, and organizational theorists, will conduct an exploratory study of creating a
multi-agent simulation model for planning and evaluating disaster response in complex
urban settings. The research team will use data collected at disaster scenarios and
exercises to develop small-scale models of the coordination of multiple agencies and
jurisdictions in the Detroit Metropolitan Area. These models will provide a proof-of-
concept for an innovative concept - multi-agent modeling with cultural algorithms - to
be used in both training and evaluation of coordination of first responders.

Upon successful completion of the feasibility study and funds permitting, the research team will scale up and
extend these models to build the MAJOR (Multiple Agency and Jurisdiction Organized
Response) Disaster Model. This model will be developed in close cooperation with
municipal police, firefighter, and emergency medical service personnel.